Presidential Young Investigators Award

The use of enzymes in organic solvents is a relatively new technology that significantly extends conventional aqueous- based biocatalysis. However, the multitude of applications in areas such as organic synthesis and enzyme-based analyses have provided only the framework for elucidating the principles and parameters that govern enzymatic catalysis in organic media. Two long-term research directions will be pursued during the course of the PYI award and include l) the understanding and control of the parameters that dictate enzymatic catalysis in non-aqueous media; and 2) the development of methodologies for the use of enzymes as catalysts in organic synthesis. The first goal involves studying the role of the solvent on enzyme structure and function. EPR spin labeling will be performed to probe enzymic active site and surface microenvironments during catalysis in non-aqueous media. The second goal has far reaching implications for regio-and stereoselective biotransformations. Specific reactions to be studied include the synthesis of sugar-containing polyesters for biodegradable polymers, peroxidase-produced phenolic resins as formaldehyde-free plastics replacements, and selective synthesis of oligosaccharides. Enzymes are nature's catalysts that exhibit keen reaction specificities and fast rates of catalysis under mild conditions. Traditionally, enzymes have been thought of as water-based catalysts. Because enzymes function in a water (aqueous) environment within living tissues, nearly all applications of enzymes in biocatalysis has involved aqueous solutions. Unfortunately, for most reactions of commercial interest (e.g., pharmaceutical manufacture, synthetic intermediates, plastics production, etc.), water is not a suitable reaction medium. Synthetic chemists had realized this long ago, and most organic reactions are routinely performed in organic (non-aqueous) solvents. Recently, a number of research groups have shown that enzymes can function in organic solvents. The research directions being targeted during the course of this PYI award involve both fundamental and applied aspects of enzymatic catalysis in organic media. From a fundamental standpoint, the factors that control enzyme function in solvents will be studied.